Bacterial Interactions Underlying Coral Disease Resistance

Intellectual Merit: An ever-growing variety of diseases, including some demonstrably caused by bacteria, are decimating reef-building corals in many places around the globe. Corals are open systems persistently exposed to a great diversity of exogenous bacteria in the overlying seawater and attached to sinking particles. Furthermore, as coastal development continues to expand, increasing eutrophication, there is increasing concern that endogenous bacteria among the normal coral associated community could proliferate to become opportunistic pathogens causing tissue damage and coral death. How corals resist bacterial invasions is a complex issue, one critical aspect being the ability of endogenous bacteria to resist colonization and proliferation of potential pathogens.

Despite great strides in recent years uncovering the remarkable genetic diversity of coral-associated bacteria, mitigation and management of coral diseases remains hampered by a lack of understanding of in situ ecological interactions within the microbial community and with exogenous bacteria that underlie coral health and disease. Bacterial attachment and proliferation are critical steps in the infection process, thus inhibiting or preventing colonization and proliferation of pathogens is fundamental to disease resistance.

Recent research by the investigator demonstrates that corals exposed to organic matter enrichment can become colonized by potential pathogens, but the communities can rebound from such perturbations. Conducting in vitro studies, the investigator found that bacteria-bacteria antagonism is common among coral isolates which suggests it may be a mechanism to resist community shifts and pathogen colonization. It could thus drive resilience within coral-associated microbial communities. In this project the investigator will test these interactions in an in situ context.

Microbes are critical for the functioning of coral ecosystems at the global scale and, therefore, it is essential that a mechanistic understanding of microbial interactions at the microscale be attained. The following hypotheses will be tested which are designed to elucidate the ecological mechanisms by which bacterial colonization and proliferation in the coral mucus layer (CML) are prevented by microbial interactions: 1) Bacterial community homeostasis in the CML is maintained through the exclusion of potential colonizers 2) Microspatial organic matter hotspots within the coral mucus layer, particularly surrounding zooxanthallae, create loci of intense growth and antagonism 3) Spatially dispersed organic matter inputs overwhelm microscale hotspots and enable pathogens to colonize the CML

Broader Impacts: This project simultaneously improves our fundamental understanding of coral associated microbial ecology and provides a necessary scientific basis for marine resource management decisions. Public education, at both the local and international levels, is a key component of the routine activities of all participating researchers, and these activities will prosper from inclusion of cutting-edge ecological findings generated by this research. Additionally, three postdoctoral researchers (two full time and one at two months per year) and one graduate student will receive training from the integrated research and education activities supported through this renewal.